Presidential Faculty Fellow

Work in the structural theory of computation, especially nondeterminism, probabilistic complexity, interactive proof systems, counting classes and program verification is continued. Newly developed techniques of algebraic structure of complexity classes and Gap-P counting functions to further understanding of these areas are used. A theory of program verification to enable an implementation of simple verification schemes is enhanced.